ITR/SY: Reliability Theory of Software Designed using Components

Proposal 0112654

Reliability Theory of Software Designed Using Components

Dick Hamlet, Portland State University

Defining, developing, and reusing software components is today accepted
as the best line of attack on the problem of expensive and unreliable
software systems. In other engineering disciplines, component-based
systems have been the key to rational design, in which engineers can
predict the behavior of complex systems before they are built and
tested. This research focuses on the quality of software components.
A foundational theory is developed to allow the designer of a system,
working from data sheets that describe proposed components, to estimate
the reliability of the system that will result.

Goals of this research are:
-- To develop a quantitative, mathematical description of the way in
which component reliability measurements can be made and later used for
calculating system reliability.
-- To experiment with the theory in simple, revealing cases, to expose
problems in the theory and improve it by experimental feedback.
-- To implement research-prototype support tools, particularly for the
system designer, that make experimentation easier.